Development of a Data Base for the Response Characteristics of Selected Mexico City Buildings Under Ambient Excitations

The objective of this project is to validate the present dynamic characteristics of typical Mexico City buildings and to measure the damping characteristics of these buildings. One steel and four reinforced concrete buildings are chosen and their ambient responses are monitored using seismometers and analog data recorders. These analog measurements of ambient data are uniformly processed and analyzed for spectral characteristics and modal properties. Further, correlation of analytical and experimental results is made to identify good design features, stress distribution in critical elements, torsional effects, effects of in-plane flexibility, and relationship between observed damage and stress intensity.